Meeting for CSEMS Principal Investigators

The Mathematical Association of America is organizing a meeting for current principal and co-principal investigators of current Computer Science, Engineering and Mathematics Scholarships (CSEMS). The meeting brings together experienced and novice principal investigators, providing the opportunity to share successful, creative, and innovative strategies for managing projects and supporting scholarship recipients. The meeting creates formal networks of principal investigators and co-principal investigators within a selected geographical area and within similar institutional structures to provide support and improve articulation.

Intellectually, the project promotes the development of innovative plans for the development of scholarship programs that include CSEMS discipline workshops and mentoring programs that enhance the experiences of the scholarship recipients.

The broader impacts are addressed by the development of strategies for institutions that are represent the broad spectrum of educational levels: two year institutions, tribal colleges, minority serving institutions, four year comprehensive institutions, and doctoral institutions.